California LSAMP Phase IV

CAMP Summary
The Louis Stokes California Alliance for Minority Participation (CAMP) a “Phase III”
Alliance funded by the National Science Foundation, is a prime University of California
initiative to diversity the student population and the future faculty. Phase IV will
continue the grant, HRD No. 0115115. UC Irvine serves as the lead campus and fiscal
agent, under the established cooperative agreement. The primary goal of the eight UC
campus partners (Berkeley, Davis, Irvine, Los Angeles, Santa Barbara, Santa Cruz, San
Diego and Riverside) is to significantly increase the number of B.S. degrees granted to
undererepresented minority students in STEM (science, technology, engineering,
mathematics) majors at the University of California and to prepare these students
competitively for the nations top graduate schools. This is accomplished through shared
best practices, networking, and a cultural change in the campus climate. CAMP represents
a systemwide community of UC faculty, program staff, and students working toward a set of
shared goals, including not only B.S. degree completion but continuation on to graduate
school, completion of the Ph.D., and entry into the scientific and engineering workplace.
This collective effort has contributed to a 78% increase in B.S. degrees granted by UC
from the baseline year (1990-91), for a total of 12,396 bachelors degrees awarded to date
to underrepresented minorities by UC. In addition to faculty mentored research experiences
and peer mentoring and tutoring, principal activities include collaborative learning,
presenting at scientific conferences, science writing and co-authorship, technology
proficiency, and preparation for advanced degrees. Graduate education is currently
supported by the supplemental activity, Bridge to the Doctorate, which currently has three
cohorts, hosted respectively at UCLA, UCI, and UC San Diego. The Bridge Fellows represent
a robust effort to encourage and support minority graduate education and completion of the
doctorate. The Bridge to the Doctorate also represents the foundation for continuing the
AMP program into Phase IV.